Scaling Reinforcement Learning by Adaptive Task Selection and Linear Solution Merging

The aim of the proposed research is to study how autonomous agents can adapt to dynamic partially known task environments. Potential applications of such agents range from hardware robots that automate delivery chores to software programs that retrieve information from the Internet. This research will focus on an adaptive control paradigm called reinforcement learning. In this approach, agents acquire task skills through trial and error by selecting actions that maximize a reward function.Reinforcement learning has some problems. It converges extremely slowly, especially in large state space problems where rewards occur infrequently. Also, the learned skills transfer poorly across related tasks. This research will investigate using a novel modular task architecture to overcome these limitations of reinforcement learning. The proposed architecture decomposes composite multiple goal tasks into primitive subtasks that achieve each individual goal. It utilizes training time more efficiently by dynamically switching between learning different tasks based on their difficulty and importance. It increases transfer across tasks by reusing solutions learned to primitive subtasks using a weighted linear sum function. It solves recurrent tasks more effectively by using a reinforcement learning method that optimizes average reward. A detailed experimental study of the proposed architecture will be undertaken, using a variety of simulated and real robot testbeds.